MRI: Acquisition of a High Resolution Optical Monochromator System

This award to a non-Ph.D. granting institution is for the acquisition of a high resolution 1.3-
m optical monochromator system with fast gated CCD camera for incorporation into the Laboratory for
Plasma Physics at Troy University. This instrument will expand the current research capabilities of the PI's
Laboratory into high resolution spectral line broadening measurements for high-velocity plasmas, which
requires linewidth resolution on the order of 0.01 nm or better. Spectroscopic studies in basic plasma
sciences will also be conducted with the help of the instrument in determining plasma density and temperature information.
The high resolution monochromator system with fast gated ICCD camera
fills a crucial void in the PI’s Laboratory. The instrument will make possible the investigations of the
effects of a weak shock wave (Mach 1-5) on plasmas as well as of plasmas behind a strong ionizing
shock wave (Mach 20 or higher). This research will provide new insight into fundamental plasma
processes involved in the electronic layers formed at the shock-front. The high resolution spectroscopic
line broadening data measured in the laboratory plasma behind a strong ionizing shock wave
(Mach 20 or higher) can have potential use for space and inter-stellar plasma diagnostics.